Algebraic dynamics

This project focuses on the subject of algebraic dynamics. Orbits of
points under iterates of maps are among the most important objects in
dynamics. In the study of algebraic dynamics, the map is typically a
polynomial or rational map in one or more variables. It is natural to
ask what kinds of algebraic relations infinite families of elements
within an orbit can satisfy. The PI conjectures that if infinitely
many elements within an orbit satisfy an algebraic relation, then that
relation must in some sense be stable under some iterate of the map.
This conjecture may be thought of as a general dynamical analog of the
well-known Mordell-Lang conjecture for group varieties. Thus far,
this conjecture has been proved in a few special cases using a
combination of diophantine and p-adic analytic methods. The main goal
of this project is to prove the conjecture in general.

This project focuses on the interaction between algebraic maps and
algebraic equations. An algebraic map is a function such as f(x) =
2x+3. Applying the map repeatedly to a single number gives what is
called the orbit of that number under f. For example, if f(x) = 2x+3
and we start with the number 1, then the orbit is 1, 5, 13, 29, 61,
and so on. One can also form orbits out of pairs, triplets, and
n-tuples of numbers by allowing f to be an algebraic map in more than
one variable. An algebraic equation is simply a more general version
of the familiar quadratic polynomials one encounters in beginning
algebra, except that it may have more variables and have higher degree
terms. One expects that if infinitely many numbers in an orbit
satisfy some algebraic relation, then that relation has an innate
connection with the algebraic map. The PI states a precise conjecture
along these lines, which he hopes to prove. The strategy for the
proof involves a wide range of techniques, some number theoretic, some
geometric, and some analytic.